U.S.-Brazil Cooperative Science Program: A Comparative Studyof Pleistocene and Pre Pleistocene Glacial Sedimentary Processes

This award from the U.S.-Brazil Cooperative Science Program supports collaborative research in geology to be conducted by Dr. James F. Cotter of the University of Minnesota, Morris and by Dr. A.C. Rocha- Campos of the Universidade de Sao Paulo in Sao Paulo, Brazil. The goal of the research is to determine the origin of boulder pavements by comparative study of examples from the Minnesota River Valley in the U.S. and the Parana Basin in Brazil. The project will study boulder pavements from the Pleistocene of the Minnesota River Valley and the Itarare Subgroup (Late Paleozoic) of the Parana Basin in Brazil in order to determine the processes which resulted in clast concentration, emplacement and modification. The collaboration expands the knowledge base of the two groups in a way impossible for either group acting alone. The project brings together the expertise of the U.S. group with recent and late Pleistocene glacial deposits with the Brazilian expertise in sediment and sedimentary structure analysis. The U.S. group, situated in a predominantly undergraduate setting, will expose undergraduates to front-line research.